Group Travel for U.S. Participants to the 10th International Congress of Protozoology, July 21-25, 1997, to be held in Sydney, Australia

9604081 Buhse This proposal is a request by the Society of Protozoologists is for funds for participant travel to the Xth international Congress of Protozoology to be held in Sydney, Australia In July, 1997. The International Congress of Protozoology is held every four years under the sponsorship of the Commission on Protozoology of the International Union of Biological Sciences. This meeting will bring together approximately 800 scientists from around the world to present their research and exchange ideas. ***